Energy & Environment Awareness and Career Opportunity Workshop

9353063 Vaishnava The GMI Engineering and Management Institute seeks to provide enrichment experiences for a three-week summer, commuter, Young Scholars program in physics and chemistry for 30 students entering grade t. The program is designed for students to learn about the physics and chemistry of energy and the environment. Students will engage in hands-on experiments, field trips, classroom lectures and discussions, and research-type projects. Through field trips and interaction with various scientists, the students will learn about various career opportunities.